A Fermentation Laboratory for Biochemical Engineering and Biotechnology

The interdisciplinary biotechnology programs at Manhattan College and at the College of Mount Saint Vincent are being expanded and improved at both institutions by the addition of a required fermentation laboratory component for students majoring in chemical engineering and biology. This facility is housed at Manhattan College. Six experiments are being developed in bacterial fermentation, yeast production, continuous centrifugation, continuous cell disruption, precipitation and chromatography. The recent acquisition of a stirred-tank fermentor and an airlift fermentor is providing students with experience in state-of- the-art equipment in biotechnology. The Biotechnology Advisory Council, composed of members of the Biology, Chemistry and Chemical Engineering Departments from both institutions plus corporate consultants, assures that the goal of developing scientists and engineers with interdisciplinary expertise in biology, microbial genetics, biochemistry, biochemical engineering and computer science will be realized at both institutions.